CAREER: Flexible Learning for Natural Language Processing

Statistical learning is now central to natural language processing
(NLP). Bridging the gap between learning and linguistic
representation requires going beyond learning parameters. This CAREER
project addresses three challenging, unresolved questions:

1. Given recent advances in learning the parameters of linguistic
models and in approximate inference, how can the process of feature
design be automated?

2. Given that NLP tasks are often defined without recourse to real
applications and that a specific annotated dataset is unlikely to
fulfill the needs of multiple NLP projects, can learning frameworks be
extended to perform automatic task refinement, simplifying a
linguistic analysis task to obtain more consistent, more precise, or
faster performance?

3. Can computational models of language take into account the non-text
context in which our linguistic data are embedded? Building on recent
success in social text analysis and text-driven forecasting, this
CAREER project seeks to exploit context to refine models of linguistic
structure while enabling advances in this application area.

This basic research supports advances in a wide range of language
engineering applications and discrete data analysis. In addition to
core research advances, this CAREER project contributes a new
publicly-available parser that models the most consistently learnable
elements of syntactic struture. Educational activities include a new
project-based on text-driven forecasting within the PI's undergraduate
NLP course and a new undergraduate course in machine learning. It
supports involvement by the PI in outreach activities to high school
students and to a wider range of students at CMU by exposing aspects
of his research in non-CS classrooms.